SBIR Phase I: Handcycle Attachment for Manual Wheelchairs

This Small Business Innovative Research (SBIR) Phase I project aims to develop a hand cycle attachment for push-rim wheelchairs. The design will allow wheel chair user to remain active by preventing repetitive stress injuries (RSI). Preliminary analysis and test results have consistently shown that hand crank propulsion is a more biomechanically efficient propulsion motion, reducing or eliminating RSI.

The proposed design will allow users to benefit from the efficiency and biomechanics of hand crank propulsion in everyday situations. The reduction or elimination of RSI in conjunction with greater mechanical and biomechanical efficiency will ultimately extend user's range and encourage physical fitness and participation in society.